Organization of Bacteriophage T4 DNA Replication Complex

Initial experiments to visualize components of the bacteriophage T4 replication apparatus by cryo-EM, under enzymatically active conditions, have successfully identified distinctive assemblies of a complex of the replication accessory proteins bound to DNA. These assemblies require continual ATP hydrolysis, have short lifetimes, and appear to comprise only a minority of the protein in the sample; hence they are difficult to isolate for structural analysis by means other than cryo-EM. The next step in this project is determining the composition and arrangement of the proteins in these complexes, by a combination of cryo-EM, site- specific labelling (subunit-specific antibodies and covalent labels), and biochemical analysis. The mechanism of formation and translocation of these structures will be examined, and their interaction with the T4 DNA polymerase will be determined, to try to understand the role of the accessory proteins in the process of replication. The other elements of the T4 replication machinery, the DNA helicase and RNA primase, will also be examined by these methods, to determine their arrangement in enzymatically active complexes and their structural relationship to the polymerase. %%% Accurate and efficient replication of the genome is a critical process in all life. Much progress has been made, primarily by biochemical analysis, in elucidating the molecular mechanism of DNA replication. The complexity of the enzymes involved is greater than had been initially anticipated. The interactions among the many proteins required for DNA replication have proven particularly difficult to analyze directly, in part due to the transient nature of active replication complexes. New technologies in electron microscopy, in particular the use of minimally-perturbing specimen preservation by cryogenic methods (cryo-EM), has opened new avenues to approach the study of active, chemically-sensitive macromolecular assemblies such as those which catalyze DNA replication. Biochemical examination of replication mechanisms in many different organisms has identified common elements of the process, which allow structural information gained about simple systems (phage and bacteria) to be related to genome replication in higher organisms. The work proposed here is an attempt to further the understanding of the mechanism of DNA replication by structural study of functionally relevant complexes of the proteins of the bacteriophage T4 replication apparatus (with DNA templates and products), and to correlate the structural analysis to steps in the enzymatic activity.